Quadratic Forms, Automorphic Forms, and Hilbert's Eleventh Problem

DMS-0603976
Jonathan Hanke

The relationship between quadratic forms and modular forms has been a
rich source of mathematical questions and answers for a long time,
through the theory of theta functions. This connection has been used
recently by the PI to understand the failure of a local-global
principle for integral ternary quadratic forms, to give a complete
answer of what numbers are represented by any given positive definite
integral quadratic form in four variables, and (jointly with
M. Bhargava) to prove Conway's 290-Conjecture which characterizes all
positive definite integer-valued quadratic forms representing all
positive integers as those representing 29 critical numbers (the
largest of which is 290). The PI proposes to continue this work by
understanding the local-global principle for a totally definite
ternary quadratic form over a number field in terms of the structure
of its theta function, and investigating (jointly with M. Bhargava)
finiteness theorems (like the 290-Conjecture) for quadratic forms
representing all odd numbers and also all prime numbers. He is also
interested in enumerating all totally definite quadratic forms of
class number one, since such forms are the basis of many arithmetic
results about quadratic forms.

The question of how many ways a number can be expressed as a sum of
two, three, or four square numbers is one of the oldest and most
interesting problems in number theory -- and the discovery of some of
the most fundamental symmetries of the arithmetic of whole numbers.
Understanding these symmetries has allowed for some of the most
celebrated results in number theory, for example Wiles's proof of
Fermat's last theorem, and Lagrange's proof that every positive number
is a sum of (at most) four square numbers. The PI hopes to use these
symmetries to continue to answer simple questions about whole numbers
-- in particular sums of square numbers -- and to provide
computational tools to allow others to do the same. These results
could be used to create better encryption systems, but more
importantly, could allow for a deeper understanding of the nature of
arithmetic and its underlying structure.